Theoretical Study of Ultra-Relativistic Heavy-Ion Collisions at RHIC and Isospin Physics with Radioactive Beams

0088934
LI
Research in two areas of nuclear theory will be carried out to study
properties of nuclear matter at extremely high temperatures, densities and
neutron to proton ratios. The first area concerns the study of a new
form of strongly interacting matter, the Quark-Gluon-Plasma (QGP).
Knowledge about this matter is crucial for our understanding about
the evolution of the early universe and the mechanism of supernova
explosions. Collisions between two heavy nuclei at ultra-relativistic
energies are predicted to produce in the laboratory the QGP.
Dedicated experiments searching for evidence of the QGP formation
will soon be carried out at the Brookhaven National Laboratory's
Relativistic Heavy-Ion Collider (RHIC). I shall further develop a
multi-phase transport model for ultra-relativistic heavy-ion
collisions. The model will be useful for interpreting experimental
data from RHIC, testing signatures of the QGP formation, and
extracting properties of the QGP. The second area of my research
concerns the study of neutron-rich matter by using nuclear reactions
induced by radioactive beams having large neutron to proton ratios. I
shall investigate several novel properties of the neutron-rich
matter. In particular, the isospin-dependence of the nuclear equation
of state (IEOS). Knowledge about the IEOS is relevant to type II
supernova explosions, to neutron star mergers, to the cooling rate of
protoneutron stars, and to the stability of neutron stars. Results of
my research in this area can also be tested at several available
radioactive beam facilities and the proposed Rare Isotope Accelerator
(RIA).